Travel Grants for the American Physical Society Division of Fluid Dynamics Annual Meeting 2010

The funding from NSF will provide partial support of participant travel to the American Physical Society, Division of Fluid Dynamics, 63nd Annual DFD Meeting 2010 in Long Beach, CA November 21- 23, 2010. This is the largest international annual meeting of fluid dynamicists in the world, with 1800 anticipated attendees. The meeting has been successfully run for over sixty years. The chief intellectual merit of this conference lies in the exchange of scientific ideas, presentations of cutting edge research, and exposure to a richly diverse array of topics in virtually every sub-discipline of fluid dynamics. The broader impact will be to increase participation of students and young scientists who would not otherwise be able to afford to travel to the meeting and pay associated costs. Preference is given: (i) to those presenting talks at the meeting, (ii) to students, (iii) to applicants from other than US, Canada, Western Europe, Japan, Russia, (iv) to those who have not received such an award in the past, and (v) to no more than one applicant from a given research advisor. Since the awards are meant to supplement participant travel funds, not to cover these entirely, the committee takes into account the travel budget entered on the application. Special effort is made to achieve diverse participation from underrepresented groups in engineering, including women and members of minority groups.